Presidential Awards for Excellence in Science, Mathematics, and Engineering Menotoring

HRD 03-28407
Dr. Ellis has established a continuum of mentoring activities for participants from early childhood (4-5 years old) to post-doctoral and faculty levels. His use of evidence-based models of a "continuum of guidance" and networks of mentors that he uses in recruiting talented students and to support the development of successful S&E careers. The further integration of the diverse array of programs Ingram has developed over twenty years allows the continuum to be extended and expanded, reaching even more talented individuals.
Ingram goes beyond his own disciplinary environment (the medical field) to reach out to students by way of various programs in the cities of Columbia and St. Louis, Missouri.